Mathematical Sciences: Dynamics of a Small Neural System

This project will explore the dynamics of a small neural network. There are three major aspects to the project: 1. modelling the neural network as a system of nonlinear differential equations with explicit representation of ion channels for each neuron within the network 2. experiments on the pyloric circuit of the stomatogastric ganglion of spiny lobsters that will be used to provide input data for parameter values of the models and to test predictions of the models 3. mathematical research to develop algorithms that will lead to tools for the explicit computation of geometric features within the models A mathematical software package called dstool, developed at Cornell for the exploration of dynamical systems, will be used, and will incorporate algorithmic advances into this environment. The initial emphasis will be the pacemaker neuron within the circuit. Guckenheimer will investigate how its response depends upon multiparameter variations of its environment that come from application of channel blockers and neuromodulators and from changes in extracellular ionic concentrations. Data from previous studies of synaptic efficacy and their dependencies upon amines will be used in modelling the interactions of neurons within the network.